History of the Core of the Western Pacific Warm Pool

This project will examine coral records from the core of the Western Pacific Warm Pool to determine whether there is evidence of long-term changes in maximum temperature that might indicate global warming. Subannual sampling will also address the question of decade-scale variability. Two Porites specimens spanning in the last 200-300 years will be analyzed for stable isotopes and trace elements. In addition, the project will explore the utility of records from the long-lived Diploastrea.